Granting Access to Mathematics and Science - Cohort II

The goal of this project is to increase the number of highly qualified and capable students who are able to complete degrees in STEM majors by providing approximately 20 need-based scholarships at Bowling Green State University, Owens Community College, and Terra Community College. A variety of student support programs are designed, such as a 5-week summer bridge for entering students to prepare them for the rigors of college science and math courses; a tiered system of mentoring by peers and faculty; learning communities with monthly events that draw students and faculty together by merging academics and social networking; undergraduate research; and support and promotion of graduate and professional studies after completion of a baccalaureate degree. This project increases the graduation rate in mathematics and science of economically disadvantaged students and of under-represented women and ethnic minority students.